Assignment of Zeolitic Framework Vibrations Using High Pressure Methods

This is a study of the vibrational modes of zeolitic frameworks, specifically those of zeolites of the faujasite group. The vibrations of a framework aluminosilicate can be divided into two general classes: "internal" modes of the MO4 tetrahedra, and "external" modes associated with structures built from the tetrahedral units; examples of the latter include vibrations of the pore openings and the cages of zeolites. High-pressure studies of Raman spectroscopy, infrared spectroscopy, and X-ray diffraction are used to separate external and internal modes; this is possible because external modes are altered dramatically by compression, while internal modes are unperturbed. The assignments made in this study are very useful for determining the structures of unknown zeolites and for studying the energetics and steric effects of adsorbates in zeolites. They also offer a convenient validity check for computer simulations of zeolite sorption and structure.